Computer Classroom in Calculus

9451326 McCutcheon The mathematics department at Los Angeles Pierce College has been actively engaged in a project to bring computers into their calculus classrooms. They are one of the six consortium members of the Interactive Mathematics Text Project jointly sponsored by IBM and NSF. Until this project they have used computers to supplement instruction in an open laboratory that is being used to capacity for homework assignments. In this project Pierce is using computer lessons they have developed and are developing as an integral part of classroom instruction to replace, in part, instructor lectures with student discovery. In addition, they are using computers to train high school and college teachers in the use and development of interactive computer lessons.